KDI: New Algorithms, Architectures and Science for Data Mining of Massive Astrophysics Sky Surveys

Moore
9873442
There many massive databases in industry and science, and
this is particularly true for Astrophysics. There are many kinds
of questions that physicists and other users wish to ask the
databases in real time, e.g., 'find outliers'; 'find clusters';
'find patterns'; 'classify the data records into N predetermined
classes.' Wide-ranging statistics and machine learning
algorithms similarly need to query databases, sometimes millions
of times for a single inference. With millions or billions of
records (such as the new generation of astrophysics sky surveys)
this can be intractable using current algorithms. This project
aims to make repeated statistical querying of huge datasets
computationally feasible by transforming massive databases into
condensed representations that permit the rapid answering of such
questions. To achieve these goals, the investigator and his
colleagues explore ways in which tools from statistics (such as
Bayesian networks), databases (such as kd-trees/R-trees), and
Artificial Intelligence (such as AD-trees and rule-finders) can
help, how they scale up, and how they can be combined.
The investigators intend to help automate the process of
scientific discovery for astrophysical data sources in which
there is too much information for any unaided human to have a
chance of spotting patterns, regularities, or anomalies.
Government and industry in the U.S. have invested heavily in
ingenious new ways to gather information in all branches of
science and industry, from cell biology to the flows of capital
in international commerce. Scientists and analysts who have
worked so hard to gather magnitudes more data than they had ten
years ago are now faced with an equally daunting task: exploiting
it fully. It is ironic that in fields such as astrophysics there
is now so much data that no human has enough time to even see a
tiny fraction of it. The job of discovering new relationships,
anomalies, and even causation, must now be at least partly turned
over to computers. The investigators comprise a team of
statisticians, computer scientists, and astronomers who have each
already made progress in this direction. This team develops new
algorithms to squeeze as much information as possible from
trillion-byte astrophysics databases such as the Sloane Sky
Survey. They also make sure that the resulting technology is
deployed elsewhere in science and industry.